The Relationship Between Lower North Atlantic Deep Water And Rapid Climate Change During Warm Marine Isotope Stages 1, 2, and 3

Subject: summary for Boyle award

Science Summary: This proposal requests support to complete a high-resolution record of deepwater characteristics (Cd/Ca) for all of the Marine Isotope Stage (MIS) 3 stadial/interstadial (S/IS) events and for all of MIS 5 in piston cores from the Bermuda Rise. The Cd/Ca data will be used to determine if changes in North Atlantic deep water flow are associated with S/IS events and if so, determine the phase relationships between the S/SI events and changes in deep water circulation. Records suitable for investigating the links between thermohaline circulation and S/SI events can be developed in cores from the Bermuda Rise because the accumulation rates are rapid enough (30cm/1000yrs) to resolve individual I/IS events and benthic foraminifers are abundant enough to allow continuous measurements of Cd/Ca through the S/IS events.